Mathematical Sciences: Numerical Analysis of Three-Dimensional Inviscid Flows with Multiple Shocks

The principal investigator will study how the so-called "lambda-scheme" for integrating Euler's equations can be extended from two-dimensional problems to three-dimensional problems. This technique will be complemented by a three-dimensional extension of shock-fitting methods. Both the lambda-scheme and the shock-fitting methods have proved to be efficient, accurate and reliable in a variety of two-dimensional problems. Internal and external flow problems will be analyzed in the course of the research. This will require the study of novel types of grids, generated by conformal mapping, which are interesting on their own rights. Evaluation of the accuracy of the numerical technique by comparison with exact solutions will be made, whenever possible. Particular emphasis will be given to the numerical interpretation of the physics of shock interactions.